Research Initiation Awards: Investigations of the Structure of Martensitic Transformations in Anisotopic Solids

This is an award to study the mechanical behavior of solids undergoing martensitic transformations. The method od approach is based on the theory of nonlinear elastic two phase materials with discontinuous deformation gradients.